Conference: Quantum Biotechnology: Bridging the Gap from Innovation to Impact

This project provides support for a workshop on the topic of Quantum Biotechnology. To bridge the gap from innovation to impact, the workshop will discuss the latest advances in quantum technologies and determine the needs of the biomedical community for improved sensing, reporting, control, and analysis and how biotech can fulfil these needs. The conference will also identify the most pressing needs in national workforce development in quantum information science and engineering, a field identified as critical to U.S. technological leadership.

The target for attendance is 200 scientific leaders in the field from around the US with participation also from Europe and Australia. The NSF funds will go to bringing the leaders in the field together to identify the most promising opportunities and urgent needs for quantum technology to impact biotechnology. The goal of the workshop is to highlight the current state of the art in quantum sensing, quantum reporters, quantum control, and quantum analysis of complex, large scale biological data and to identify opportunities in technology development.